Collaborative Learning Methods for an Introductory Computer Programming Course

Computer Science (31)
This project is developing a more effective way of teaching the high dropout introductory
programming course by using a set of group-based cooperative learning exercises in
conjunction with the lecture approach. A major goal is to maximize use of faculty
resources by incorporating teaching assistants into the process.

Cooperative learning is a well known pedagogy for improving student retention and success. However, it is relatively unused in computer science and this project will provide an instructor's manual and group exercises to help computer science faculty move towards using cooperative learning.